Implementing Supranational Justice: Policymakers and the European Court of Justice

Abstract
This study examines the impact of the European Court of Justice- the best case of
powerful supranational justice- on the health services of Western Europe- the best cases
of welfare states, politically salient and deeply wedded to their domestic order. Since
1998, the European Court of Justice (ECJ), the top court of the European Union (EU) and
"the most effective supranational body in the history of the world" (Stone Sweet
2005:108), has begun to incorporate health and social security into the liberalizing EU
single market. Existing studies have focused on explaining this case of European
integration and on doing preliminary maps of power and responsibility in EU health care
policy. This project goes beyond those studies and takes this development as a case of the
impact of supranational justice on policy and implementation. It asks (1) what variance is
there in the concrete policy responses of EU member states to the decisions of the ECJ on
cross-border mobility of patients and labor regulation? And 2) what explains the variation
in EU member state responses to the developing EU law?
Answering the first question requires research to identify what "compliance"
means to governments in different states and how much of it there has been. This
involves governments' interpretation not just of EU law but of the likely actions of the
domestic courts that interpret and apply most EU law. For the second question, there are
two clear hypotheses derived from the literature on the impact of judicial decisions on
society. One is a political hypothesis, that the success of judicial decisions is a function of
the existing "support structure"- that decisions, without interest groups who will support
and take advantage of implementation, will have very limited impact. The other is
institutional, drawn from the literature on "Europeanization". It identifies the problem as
a goodness-of-fit problem; states will comply faster and better with decisions that require
less change to existing institutions.
The study will be conducted with legal elite-level interviews and legal
documentary analysis in Spain, France, Germany and the United Kingdom. The countries
have been selected because they represent a range of relevant variables- legal systems,
health systems, bureaucracies, and historic relations with EU law and policy. This plays
to the strengths of qualitative case studies in a situation with many hypotheses and few
reliable indicators. Policymakers' perceptions of their legal powers and constraints are
crucial, and best accessed through interviews and research in the relevant law.
The intellectual merit of the proposal lies in its approach to the issue of
judicialization in the EU and beyond. For the EU, it contributes to the analysis both of the
rising power of the ECJ and of its actual impact- an impact that includes both extended
EU powers over the welfare state, and the potential legitimation or delegitimation of the
European project. More broadly, it should contribute to the small literature on the
important relationship between courts and bureaucracies, identifying the effects of courts
on implementers. The broader impact will come in two ways. First, European Union
law and the welfare state is an important topic with ample potential to engage in
contemporary European debates. Second, the project incorporates student research from
the undergraduate to doctoral level, exposing students to sociolegal research and
European politics.